Mathematical Sciences: Presidential Young Investigator Award

This is the fourth year of Imbrie's Presidential Young Investigator Award. He has recently transfered institutions from Harvard University to the University of Virginia.